Gordon Research Conference on Glycoproteins and Glycolipids:Ventura, California, February 13-17, 1989

A Gordon Research Conference on Glycoproteins and Glycolypids will be held February 13-17, 1989, at the Sheraton Hotel in Ventura, California. Although an established symposium ets emphasis has shifted with the times and this one will focus on structure function relationships of glycoproteins; glycolipids and glycoaminoglycans. The meeting will be of interest to researchers working on these subjects in higher and lower eukaryotes, bacteria and enveloped viruses. Participants will be limited to approximately 130 attendees, determined by the capacity of the hotel. It is intended to provide a balance between established and beginning investigators, students and postdoctoral fellows. The meeting will be advertised in Science. A special effort is being made to include plant scientists.